Theoretical Studies of Reaction Dynamics

Professor Stuart Rice is supported by a grant from the Theoretical and Computational Chemistry Program to perform studies of elementary processes in chemical dynamics for the purpose of (i) improving the theory of laser control of product selectivity in a chemical reaction, and (ii) improving the theory of unimolecular reaction rates. Existing theories of laser control of the evolution of a quantum system will be extended to the case of nonadiabatic reactions, and the theory will be improved by incorporation of a feedback mechanism that shapes the optimal laser field without precise knowledge of all of the molecular parameters in the system Hamiltonian. The description of unimolecular reaction rates based on modern nonlinear mechanics will be improved by extension of the mapping methods which provide an exact representation of the dynamics of systems with two degrees of freedom to systems with many degrees of freedom. The results will be used to study several types of unimolecular fragmentation and isomerization reactions. A quantum version of the classical theory of unimolecular reaction rates will also be developed. %%% The achievement of selective control of product formation in a reaction has been sought persistently throughout the evolution of chemistry. To date, such control has only been accomplished at the macroscopic level, by the manipulation of external factors such as temperature, pressure, solvent character, etc. With the advent of the tunable laser, it was hoped that product selectivity could be controlled at the microscopic level, and that individual bonds within a molecule could be selectively broken. It was very quickly found that energy absorbed by a molecule was not easily localized in individual bonds, but preferred to redistribute throughout the molecule. More recently, however, the concept of laser selective chemistry has had a rebirth, and theories developed by Rice and others have shown that energy could be localized by carefully choosing a complex sequence of laser pulses of prescribed shapes. If this theory can be put to practice experimentally, it may still be possible to realize the goal of microscopic selective control of chemical reactions.